International Deep-Ocean Technology Symposium

9523628 Chung International Deep Ocean Technology Symposium (1996) is scheduled to be held tentatively in Los Angeles in the U.S., May 31-June 1, 1996. With the signing of the UN Law of the Sea Treaty in 1994 by the U.S. and the continuing research on deep ocean in many countries, this event will provide a timely occasion for the colleagues to get together and review the progress made in the last 5 years, and to discuss and summarize what important technological problems for further research are expected in the next 5 to 10 years, and promote further cooperation. The primary institutions in the countries, that are most active in deep-ocean technology research, will participate in this Symposium. ***